Applied and Computational Mathematics Laboratory

This project involves the development of a computer laboratory for applied and computational mathematics. A number of recent national reports have stressed the need for stronger emphasis on computational mathematics education. The laboratory will enhance San Jose State University's applied mathematics and computational mathematics courses by providing them with a good laboratory component where students can carry out numerical experiments and see illustrations of results in applied mathematics. In addition the lab will provide support for San Jose State's innovative Applied Mathematics and Computer Science Clinic. The purpose of the Clinic is to give students the opportunity to do real-world problem solving as part of a team in a setting which is not usually encountered in undergraduate education. Problems arising in the Clinic are usually complex and evolve as the problems are studied. For such problems substantial computing power is required. The laboratory will consist of 8 IBM AT microcomputers and DSI co- processor and memory boards. This combination will result in a machine much faster than the basic computer and with 4 MB of memory.